CAD/CAM Manufacturing and Automated Processing Laboratory

This project supports this institution's Mechanical Engineering Technology program and a new program in Manufacturing and Design. Students of manufacturing and design, mechanical, industrial automation and electronic engineering technology study the concepts and techniques of computer-integrated processing and the interfacing necessary for computer-assisted functions. Utilizing workcells, students experiment with production operations in the laboratory. The laboratory supporting this project includes the following equipment: three CNC machine tools (one mill and two lathes) linked to the CADAM system for CAD/CAM production, integrated with robots, microprocessors and programmable logic controllers. Manufacturing precision is verified with an optical comparator and manual gages. Students are trained as technologists in this state-of-the-art laboratory to serve a critical need in the Nation. This award is matched by an equal amount from this institution.